Combinatorics and Topology of Simplicial Complexes

The investigator studies the topology and combinatorics
of simplicial complexes. This includes work on the spectra
of discrete Laplace operators analogous to Laplace operators on
Riemannian manifolds, questions relating the topology of the
complexes to commutative algebra, and the topology of certain
partially ordered sets of subdivisions of convex polytopes.

The investigator studies mathematical objects called
simplicial complexes. These objects arise when one wants
to take everyday objects or shapes, such as automobile parts
or biological molecules, and represent them in a computer.
Many important problems revolve around understanding or tailoring
the shape of such objects, and the simplicial complexes give
a concrete way to do this. Part of the investigator's work
may be thought of as placing constraints on the shapes of these
objects, if we know how many pieces are used to build them.